The Inquiry Project

This learning progression project will develop a learning progression in scientific inquiry about the nature of matter. The effort will result in a research-guided system of curriculum, assessment and professional development focusing on the transition from a macroscopic to a microscopic understanding of matter that occurs in upper elementary and middle school. The project has a close collaboration with scientists and urban schools.